National Virtual Network Access Point

ABSTRACT U.S. Sprint PI: Farooq Hussain NCR - 9321072 This award supports the creation, operation and management of a Network Access Point (NAP) and provision of related NAP services in the New York area as called for by Program Solicitation NSF 93-52. This is one of three for such NAP services (at 4 locations) to be funded as a result of that solicitation.